Nuclear/High Energy Physics Center of Excellence

This Minority Research Center of Excellence (MRCE) project at Hampton University represents the establishment of an internationally competitive nuclear physics program. This is the first program of this quality in nuclear and high energy physics to be located at a historically Black university. More specifically, this project will: (a) expand and enhance the physics faculty at Hampton; (b) strengthen collaborative activities with accelerator facilities that are located at other universities and national laboratories; and (c) provide support to develop a Ph.D. program in nuclear physics at Hampton University. Hampton University will serve as a Center for promoting interest in nuclear and high energy physics by underrepresented minorities. This achievement provides a focal point for the University to work with other historically Black colleges and universities to strengthen nuclear and high energy physics by underrepresented minorities. This achievement provides a focal point for the University to work with other historically Black colleges and universities to strengthen nuclear and high energy physics throughout the nation. The MRCE at Hampton will continue collaborations with the Continuous Electron Beam Accelerator Facility (CEBAF) at Hampton Roads and with the College of William and Mary. The CEBAF facility will provide a better understanding of the basic nature of matter. CEBAF's advances will continue the tradition of nuclear physics to benefit other fields such as molecular biology, materials science, geological prospecting, semiconductor fabrication, radiation medicine, and energy technology. Hampton University plans to fulfill a dream in being an integral part of CEBAF's overall development and to make that dream a reality for minorities who choose careers in science and engineering. The nuclear and high energy physics faculty members at Hampton are will respected in the scientific community because of their publications in refereed journals and their participation in national and international professional conferences.